Undergraduate Faculty Enhancement Workshop in FT-NMR

A one week workshop on FT-NMR will be held for undergraduate faculty, who have had little experience in FT-NMR, from 2 and 4 year institutions in a six state region: Arkansas, Oklahoma, Missouri, Kansas, Nebraska and Iowa. The workshop will consist of lectures, instrument use, and data analysis and will cover topics ranging from beginning NMR theory to pulse sequences and 2-D NMR. Hands-on experience will be gained on a JEOL 270 MHz FT-NMR. A workshop handbook, containing a large number of spectra, will be prepared for each participant. Participants will be able to use these spectra at their home institutions. Major goals of the workshop are to up-date participants on modern NMR techniques and to encourage use of these techniques in the undergraduate curriculum. Follow-up activities include a meeting at the Midwest Regional ACS meeting, in November, 1995. Reports prepared by participants about their use of the information gained from this workshop will be collected, edited, assembled, bound and distributed to all institutions of higher education in the six state region.